SGER: Feasibility Study of Nano-Electrochemical Machining Process

Extensive research in Nanoscience and Nanotechnology in various fields such as biology,
optics, telecommunication, material and electronics promises novel and sustainable
technologies and products. To fulfill the promise, a set of new manufacturing processes
and manufacturing paradigms are needed for industrial scale production. A recently
conducted NSF workshop on Nonomanufacturing and Processing recommends bottom up
(such as electroforming and assembly) and top down (such as EDM, ECM, laser and
etching) processes as potential technologies for generating 1D, 2D, and 3D
nanostructures and devices.
This SGER proposal seeks funding to study the feasibility of developing a Nano-Electrochemical
Machining (Nano-ECM) process. Electrochemical machining (ECM)
process, an anodic dissolution process, selectively removes material atom by atom and
thus avoids post-processing operations. As ECM is a non-thermal and non-mechanical
contact process, it generates burr-free and stress-free surfaces. Micro-ECM process has
shown to be highly successful in machining arbitrary 3D micro shapes. Therefore, ECM
seems an ideal candidate as one of the top down nanomachining processes. However,
many scientific and technical barriers and associated risks must be considered and
addressed for the realization of Nano-ECM process.
Intellectual Merit:
This study will establish an extensive and comprehensive knowledge base of the state-of-the
art research in electrochemical deposition and dissolution at nanoscale and related
scientific and technical barriers. An attempt will be made to develop a mathematical
model to describe Nano-ECM process by taking into consideration mass transport
process at a very small gap, coupled modes of mass transport, coupling of Faradic
processes and statistical aspects of discrete events of reactions. A Nano-ECM cell will be
assembled using an Atomic Force Microscope (AFM).
Broader Impacts:
This study will initiate the establishment of an educational and research infrastructure for
Nanomanufacturing at the University of Nebraska-Lincoln (UNL) that will be accessible
to researchers from UNL and other U.S. universities. The success of the project will lead
to the development of a new graduate/undergraduate course on Nanomanufacturing. The
project results will be demonstrated to high school teachers and students on a regular
basis. A collaborative research with researchers at the Warsaw University of Technology
will be planned by simultaneously submitting proposals to US and EU research agencies.